STTR Phase II: Development of a Solar Air Conditioner for Small Cooling Loads

This Small Business Technology Transfer (STTR) Phase II project will develop a reliable prototype of a novel, compact and low cost solar air conditioning system for hot and humid climates. The system will consist of an air-cooled single effect absorption machine driven by an array of high performance flat plate collectors and a thermal storage tank. A microncontroller based control system will allow an optimal system operation. The capacity of the system is projected to be in the range of 3-5 cooling tons.

The marketing, manufacturing, installation, and product development of the proposed technology is envisioned as a partnership of three small businesses dedicated to: installation of A/C systems, marketing and manufacturing of solar collectors, and to research.